SGER: Direct Sequencing of Albumin

This study proposes to collect direct sequence information from the coding portion of the gene for vertebrate serum albumin. Initially DNA (genes) from three frogs will be purified and cloned. Once serum albumin DNA sequences are obtained for these three species, the sequences will be aligned so that regions of complete similarity can be identified. If such identical regions can be found, primers will be developed to allow the amplification of homologous albumin genes from other frogs. The development of such primers will permit the rapid amplification and sequencing of this major nuclear gene from a large number of frog species. This information can be invaluable in assessing the relationships of major groups of organisms which are used extensively in studies of genetics and development.